Geometric Analysis with Applications in Low Dimensions

NSF Grant DMS-0204496
Title: Geometric Analysis with Applications in Low Dimensions
Principal Investigator: Richard A. Wentworth (Johns Hopkins University)

The PI proposes three research projects in the area of geometric analysis.
This work will produce new results on rigidity problems in low dimensional
topology, a better understanding of certain geometric structures on
3-manifolds arising from complex analysis, and a new approach to regularity
issues for a type of minimizing subvariety. The first project deals with
homomorphisms from fundamental groups of Riemannian manifolds to the mapping
class group of a compact oriented surface. Examples arise as monodromy
representations of surface bundles. Building on previous work in this area,
the PI will use harmonic map theory to give a new proof of the finiteness
theorem of Farb-Kaimanovich-Masur for lattices in higher rank Lie groups.
New results for lattices in rank one groups will be obtained from these
techniques. Symplectic Lefschetz pencils also provide especially
interesting examples to which this method may be applied. The second project
studies spherical CR structures on 3-manifolds. The PI will consider three
aspects of the subject: uniformizability, rigidity, and compactness. The
research will develop a new approach to these problems based on subelliptic
analogs of harmonic map equations. A goal of the work will be to prove a
compactness theorem which will have implications for new 3-manifold
invariants. The third part of the proposal seeks to extend the method of
Taubes to prove regularity results for certain calibrated rectifiable
currents. This will provide a clarifying framework for a variety of
geometric constructions that are of current interest. In addition to these
new projects the PI will complete previous work on a conjecture of Bando-Siu
concerning the Yang-Mills flow on higher dimensional Kaehler manifolds.

One of the most fascinating subjects in contemporary mathematics is the
study of spaces of dimensions three and four. These are also the most
important from a physical point of view, since we live in three dimensional
space, and dynamical behavior takes place in four dimensional space-time.
The use of analytic techniques to understand the geometry and topology of
low dimensional spaces continues to be a fruitful avenue of research, but
there is much work still to be done. The focus of the PI's research in the
area of the geometry of low dimensions and mathematical applications of new
ideas in physics.
.